Applied Process Control

Research on the application of advanced chemical process control will be conducted. In one project, predictive control will be applied to simple distillation towers, to towers with sidestreams, and to trains of towers. The use of variable combinations such as the separation factor instead of the product purities directly as control variables also will be tested. In a second project, short cuts on simple approximate dynamic models will be investigated. Correlations will be attempted between the tower time constants and the key process variables. These notions will be extended to include the control loop as well as the dynamics of the system.